Symposium - Concepts of Adaptation in Aquatic Animals; Deviations from the Terrestrial Paradigm; December 30, 1988;San Francisco, CA

Funds are awarded to partially support a conference on adaptations of aquatic organisms to be held at the American Society of Zoologists' national meeting.